Neurotensin-Regulated Protein Phosphorylation: A Mechanism for the Modulation of Dopaminergic Neurotransmission

Neurotensin (NT) is an endogenous brain tridecapeptide which fulfills many of the criteria for being considered a neurotransmitter or neuromodulator substance. A particulary intriguing aspect of NT neurobiology is the interaction of this peptide with dopamingergic neurotransmission. However, the neurochemical mechanisms of NT/DA interactions are largely obscure. The goal of the research project is to investigate the modulation by NT of specific protein phosphorylation pathways which may mediate DA signal processing in both dopaminergic and dopaminoceptive neurons. The specific experiments to be performed are: (1) elaboration of the changes in specific protein phosphorylation induced by NT in both broken and intact cell preparations, as well as biochemical characterization and identification of NT-sensitive phosphoproteins; (2) correlation between NT-induced changes in protein phosphorylation and NT- induced stimulation of DA release from caudate nucleus and nucleus accumbens brain slices; and (3) examination of the effects of NT on the phosphorylation of DA-sensitive phosphoproteins. These experiments will aid in understanding the molecular processes underlying the observed behavioral and physiological NT/DA interactions.